NSDL: ASN Toolkit

Teachers, particularly K-12 teachers, need access to educational resources such as the resources accessible through the NSDL that assist them in achieving specific learning goals. Many of the learning goals are formally set down national and state achievement standards such as the American Association for the Advancement of Science (AAAS) Project 2061's Benchmarks for Science Literacy. This project is integrating the Content Assignment Tool (CAT), the Teacher Domain Educational Standards Correlation tool (TD-ESC) and the Digital Collection Service into the Achievement Standards Network (ASN). Additionally, the NSDL Metadata Registry required by the TD-ESC and the Gateway to Educational Materials (GEM) Thesaurus Browser that facilitates cataloging by the DCS are included. The resultant tool assists teachers by eliminating the cumbersomeness of working with a set of separate tools that currently are incompletely compatible